Hierarchical Modeling of Vegetation-Climate Interaction and Its Impact on Tropical Climate Variability

Abstract
ATM-987644
Zeng, Ning
University of California, Los Angeles
Title: Hierarchical Modeling of Vegetation-Climate Interaction and its Impact on Tropical Climate Variability

The PIs propose to study how vegetation changes with climate in the Sahel. The consequences of this interaction on tropical interdecadal/interannual climate variability will also be examined. The PIs will use a coupled atmosphere-land-vegetation model of intermediate complexity. While GCM sensitivity studies have demonstrated the potential impact on climate from land-use change such as deforestation and desertification, the impact of naturally varying vegetation on climate variability has received less attention. The work is important because it will increase understanding of interactions between vegetation and climate.